Structural and Geomechanics Systems Grantees Conference

This project is to support an NSF Grantee Research Conference in San Juan, P.R. in June 1992 in conjunction with selected Latin American Countries and Canada. The subjects to considered are: infrastructure related such as, geomechanics, structures, and building Systems.